Nonlinear Dynamics and Control Issues for Bladed Disk Vibration Suppression Using Magnetic Bearings

9503488 Flowers In this project analytical and experimental techniques are developed for the active control of disk and blade vibrations using magnetic bearings. Vibration of bladed-disk assemblies is a significant problem in turbomachinery. Fatigue failures induced by excessive vibration is a major cause of turbomachine failures. The noise that results from flow-induced blade vibration is a significant factor in the environmental impact of aircraft engines. In view of these concerns, strategies are developed to alleviate blade fatigue and vibration induced noise. Influences of nonlinearities arising from aeroelastic effects, from rotor support structure, and from magnetic bearings are considered, and nonstationary excitations due to variations in rotor speeds are examined. The research results are also applicable to vibration control of high speed machining.***